Rethinking the Role of Science Curriculum-Development Organizations

9354091 Bybee BSCS will complete this project in three phases. The first phase involves commissioning short papers on the general theme of curriculum development. The papers will consider different questions and provide a provocative and creative, yet scholarly, basis for the conference. Each author will present his or her ideas in a short, editorial-length paper. The authors for these editorials will not be from major curriculum-development groups. The papers will be distributed prior to the conference and included in the monograph. Figure 1 displays potential topics and authors for these commissioned papers. Representatives from both national and local curriculum- development groups also will prepare short editorials on their respective organizations and the priorities, changes, and projections for the next decade. In particular, they will address (1) their long-range organizational plans, (2) their responses to the standards-based reform, (3) the factors that facilitate and inhibit curriculum development, and the issues and problems they expect in the next decade. Figures 2 and 3 display the proposed authors and organizations. ***